1996 Cold Spring Harbor Conference on Mouse Molecular Genetics; August 28-September 1, 1996; Cold Spring Harbor, NY

Grozicker 96-00696 The use of the mouse as a model system for understanding normal development and disease processes has increased dramatically over the last few years. This is due to sophisticated techniques which enable the manipulation of the mouse genome and the emergence of a high resolution map which enables scans of the entire genome for loci of interest. The goal of the proposed Cold Spring Harbor Conference on Mouse Molecular Genetics to be held August 28 - September 1, 1996, is to bring together a diverse group of scientists studying various molecular and genetic aspects of mammalian development and disease. This conference is expected to attract approximately 400 scientists from around the world. This annual meeting (the ninth in a series) will provide a format for the exchange of ideas and information among both junior and senior scientists, for the discussion of the latest research findings and technical advances towards the study of mammalian development and disease, and fosters scientific collaboration. Seven topics (eight sessions) have been selected for detailed discussion as a reflection of the most advanced and interesting areas of study in mouse molecular genetics (Genetics, Patterning, Signals & Receptors, Organogenesis, Tumorigenesis, Neural Development and Embryogenesis). Two established scientists per session are invited to present a relatively global perspective of their work (one of which will also act as the chairperson for that session), while the remainder of the talks will be selected from the submitted abstracts. Other participants will be able to present their research in one of the two poster sessions to be held during the conference. This format allows the participation of many junior scientists, giving them a format to present their latest work.